An Undergraduate Research Experience Program in Discrete Mathematics

The purpose of this project is to provide a research experience in
discrete mathematics for six highly talented undergraduate mathematics
students during each of the summers of 1999, 2000 and 2001. The principal
investigator and an assistant will supervise the work. The undergraduate
participants will also interact mathematical and socially with former
program participants who will be visiting the program.

The program has a twenty-one year history of attracting extraordinary
students and producing papers in well regarded professional research
journals.